A Unified Mechanism Design Approach for Branch-Free and Circuit-Free Solutions

9402608 Krishnamurty In this research project, a unified scheme is developed for the design of generic mechanisms using an exact gradient approach. The utilization of this approach enhances the efficiency of the mechanism design process, and the accuracy of the final solution. It includes a comprehensive design procedure for determining and eliminating branch-defects and circuit defects during mechanism synthesis process leading to optimal solutions for complex mechanisms. The unified approach uses matrix methods to model and analyze mechanisms to ensure generality, and has the capabilities of systematically determining suitable mechanism types and their optimal dimensions without branch and circuit defects. The results of this research are extremely useful in the mechanism identification and enumeration process, formulation of appropriate selection and rejection criteria for mechanism evaluation, and designing and implementing schemes for automatic mechanism sketching without crossing links, and representing different class of mechanism such as contracted graphs and kinematic chains. ***